Travel Awards for 1994 Congress of the International Union of Microbiological Societies, Prague, Czechoslovakia, July 3-8, 1994

Vidaver 9400747 The 7th International Congress of the Bacteriology and Applied Microbiology Division and the Mycology Division of the International Union of Microbiological Societies will meet in Prague, Czechoslovakia in July, 1994. The Congress serves as a forum for microbiologists throughout the world to discuss recent advances in bacteriology and mycology. The topics to be covered in the Congress include general bacteriology and mycology, industrial microbiology and specific topics such as use of molecular probes and nucleic acid sequencing in microbial systems, microbial ecology and microbial physiology. This meeting has as its goal to serve as a forum for microbiologists throughout the world to discuss recent advances in bacteriology and mycology. Scientists with different backgrounds will interact so that each can benefit from the specialized knowledge of the specific sub disciplines of microbiology. Participation of U.S. scientists is vital to increasing communication and interaction with microbiologists of other countries, especially in affording them an opportunity to collaborate with their Eastern European colleagues.